Development of Engineering Technology Motion Control Laboratory at Cleveland State University

This project equips a laboratory with scientific hardware and software to teach the fundamentals of motion control systems. This equipment is incorporated into the laboratory portion of the automatic control systems curriculum for Electronic Engineering Technology undergraduate students. Motion control, along with computer technology, is the basis for much of the work being done to upgrade U.S. manufacturing capabilities. The purpose of the laboratory equipment is to complete the student's understanding of the complexities of motion control applications. The laboratory experiments complements classroom lectures and computer dynamic simulations of the motion control process. The hands-on experience make the student better able to comprehend the intricacies of the multifaceted physical and position feedback control systems. Both rotary and linear output motion are available. Actuation devices are DC servomotors and stepper motors, and high efficiency pulse-width-modulated drive electronics are provided. Measurement devices are analog and digital transducers (e.g. tachometers, potentiometers, resolvers, and encoders). Intelligent axis cards are used to study motion profile capability closely related to automation applications. A multi-axes demonstration system is included to provide a complete understanding of motion control flexibility. The laboratory experiments insure that the students receive a strong fundamental understanding of the basic principles of high-performance motion control.